CAREER: Theoretical Studies of the Electronic, Structural, and Vibrational Properties of Molecule-Surface Systems

9702514 Rappe This is a CAREER award to a new faculty member. The research component involves theoretical studies of the interactions of molecules with surfaces. Because these interactions are strong, it is important to treat the molecule-surface as a single system. Theoretical models will be developed and applied to increase our understanding of the electronic, structural and vibrational properties of molecules interacting with metal surfaces. The methodology to be used will be state-of-the-art quantum mechanical density functional theory. The educational component of this award involves extensive participation of undergraduates in research projects and the development of distributed research projects for all undergraduate science majors. %%% This is a CAREER award to a new faculty member. The research component involves theoretical studies of the interactions of molecules with surfaces. Because these interactions are strong, it is important to treat the molecule-surface as a single system. Theoretical models will be developed and applied to increase our understanding of the electronic, structural and vibrational properties of molecules interacting with metal surfaces. The methodology to be used will be state-of-the-art quantum mechanical density functional theory. The educational component of this award involves extensive participation of undergraduates in research projects and the development of distributed research projects for all undergraduate science majors. ***